Doctoral Dissertation Research in Political Science: Political Competition and Refugee Policy

Countries receiving refugees have responded to them in a variety of ways. Some host countries have adopted more generous refugee policies than others, and single countries have shifted between generous and restrictive responses over time. The central research question for this project is: What explains these differences in states' refugee policies?

This project argues that a given state's choice of refugee policies cannot be adequately explained by examining its internal security concerns, economic climate, or public attitudes. Instead, this study will demonstrate that international and domestic political competition lead countries to adopt a distinct set of policies for each group of refugees they receive. On the one hand, states use refugees to reassure international allies and exert pressure on rivals. At the same time, governments have political incentives to favor refugee groups who share their predominant ethnic identity. Treating countries as though each had a single blanket refugee policy masks important disparities in treatment between refugee groups.

Two methods will be used to address the research question and investigate the theory described above: statistical analysis and case studies. First statistical analysis will explore general patterns in countries' decisons to admit refugees onto their territory. Second, three case studies will be conducted. Egypt, Kenya, and Turkey share some of the same refugee groups, but each country has a different ethnic composition and a different history of relations with its neighbors. The case study approach allows us to examine the policymaking process in richer detail and incorporate a broader spectrum of refugee policies into the analysis. The statistical and case study components complement each other, and in combination provide greater confidence in our findings.

Besides the intellectual merits of the project, it will have two main broader impacts. First, a new dataset on refugee flows will be made public. Second, results may inform the activities of the UN Refugee Agency as as well as relevant local and international NGOs.